Interactions between C*-algebra and set theory

This project involves the interaction between set theory and C*-algebras.
The primary goal is to settle old outstanding open problems using set
theoretic tools, which could involve proving independence results.
Specific problems that could be addressed include the following: Naimark's problem
about the existence of nontrivial C*-algebras with only one irreducible
representation; Anderson's conjecture about pure states restricting to
pure states on diagonal masas; the Kadison-Singer problem that has many
equivalent formulations and is significant to several areas of mathematics;
the Stone-Weierstrass problem about the existence of proper subalgebras
that separate pure states; the problem of Brown, Douglas, and Fillmore
about the existence of an automorphism of the Calkin algebra taking the
image of the unilateral shift to its adjoint; and Arveson's problem about
the existence of sufficiently many boundary representations for
nonseparable operator systems.

C*-algebras, a class of mathematical structures that were originally
studied primarily for applications in physics, have over time found
substantial applications in a broad variety of areas of both mathematics
and physics. Much current work in this field focuses on developing
further connections to these other areas, but fundamental questions of
basic theory remain open. In the past decade a series of long-standing
open problems in C*-algebras have been settled using, in an essential way,
techniques from the seemingly unrelated area of set theory. This was a
surprising connection that has enriched both fields. Further work in
this direction is expected to lead to a better understanding of C*-algebras
at a fundamental level.